A Force Concept Approach to Introductory Physics Labs

A force concept approach to introductory physics laboratories seeks to address the lack of conceptual understanding that students retain as they exit from introductory courses. The project hopes to aid students in building operational definitions for the concept of force and provide them with direct, personal experience with the measurement of force. The goal is that each student (a) learn about physical phenomena in a hands-on way, (b) overcome conceptual difficulties, (c) learn the procedures involved in drawing scientific conclusions, (d) experience working with laboratory equipment including computers, and (e) use writing and critical thinking as tools to gain understanding. They use computerized force sensors, motion sensors, and field sensors to gain direct experience with forces and fields and the resulting motions of objects subject to these. The target audience includes students from biology, prepharmacy, premedicine, prephysical-therapy, architecture, preservice teaching, sciences, math, and engineering, including students who later major in physics.